Equipment for Computer Interfacing in Undergraduate Physiology Laboratories.

New laboratory experiences for undergraduates in three Biology courses which have a substantial Physiology component (Human Anatomy and Physiology, Principles of Biology, and The Biological World) are being developed using new equipment acquired through this grant. The project has three major foci: teaching students how to interface computers with laboratory equipment, how to use computers to acquire data, and how to manipulate and analyze data with computer assistance. This equipment makes it possible to consider aspects of cardiovascular physiology, respiratory physiology, and the physiology of reflexes that previously could not be addressed in these courses because the requisite equipment was lacking. Laboratory experiments in other areas also are being upgraded by involving students more directly. Laboratories being improved in this way include the EKG labs; lung physiology labs; exercise physiology labs; and labs in biochemistry and human genetics (where computer simulations are being used extensively). A laboratory manual is being prepared that reflects the hands-on experiences of this P.I. and his students.